Nonlinear Wave Propagation

Abstract, Proposal 0309648, Hunter, University of California-Davis

Title: Nonlinear wave propagation

This project addresses fundamental and poorly understood issues in the
theory of hyperbolic conservation laws,such as the ones that model
compressible fluid mechanics. It also addresses problems in
incompressible fluid mechanics and general relativity, and applies the
results to a variety of important physical problems. A common theme of
much of the proposed work is how nonlinearity leads to the formation
and propagation of various kinds of singularities, such as shock waves
in compressible fluids, or space-time singularities in general
relativity. Specific topics proposed for study are the following:
shock wave reflection; shock wave propagation in random media;
nonlinear hyperbolic surface waves in elasticity and
magnetohydrodynamics; the Prandtl boundary layer equations and
vorticity wave, mean flow interactions in incompressible fluid
mechanics; and the effect of nonlinearity on gravitational waves in
general relativity.

Waves (such as sound waves, seismic waves, light waves, quantum
mechanical waves,or gravitational waves) are a central feature of many
physical systems, from the atomic to the cosmological scales. At lower
intensities, waves superpose and they may be described by linear
theories, but at higher intensities nonlinear effects becomes
significant, leading to qualitatively new phenomena (like shock waves
and solitons). Nonlinear waves are much more difficult to analyse
mathematically than linear waves, and are often of great practical
importance. For example, shock waves form around aircraft that travel
close to the speed of sound. One aim of this project is to study
basic, but not fully understood, shock wave phenomena, such as their
reflection from walls. Among other topics, the project also includes a
study of nonlinear surface waves, such as the Rayleigh waves which are
generated by earthquakes and are used in a variety of ultrasonic
devices, and a study of the formation and propagation of space-time
singularities in gravitational waves.